A Basic Investigation of Corrosion under Thin-Film Electrolytes

This research employs Kelvin probes to study the corrosion behavior of metallic surfaces. The investigators are constructing a potentiostat/galvanostat system using the Kelvin vibrator as a contactless reference electrode. The Kelvin probe is a sensor for determining the corrosion potential of materials exposed to thin film electrolytes. This system is used for the measurement of the corrosion potential and corrosion current versus time of homogeneous and of galvanically coupled metals under very thin electrolyte layers and humidity films. The devise is also used to determine effects of substrate-induced heterogeneities and defects on the semiconducting properties of anodically grown titanium dioxide. %%% This research is making significant strides in new understanding of atmospheric corrosion. The Kelvin probe permits electrochemical measurements through precisely controlled electrolyte films within specific pollutant atmospheres.